A Real Time Scour Measurement Instrument

Instrumentation based on the refracting mode of seismic surveying will be developed to measure the scouring adjacent to bridge's abutments and piers. The instrument will use a repeatable acoustic source placed next to the concrete structure with an array of hydrophones in a PVC pipe buried in the river bed next to the pier. The repeated signals from the acoustic source will then be refracted down the pier into the soil. The rate of scouring is slow compared to the total travel time of the refracted energy thus, allowing signal enhancement and detection and measurement of this serious problem. The potential for application of this technique is high especially in places were bridges are often under flood conditions when the weakening of piers and abutments, if undetected, can be disastrous.